Automorphisms of 3-manifolds

Abstract

Award: DMS-0102463
Principal Investigator: Darryl McCullough

The proposed work advances a number of research projects in the
area of low-dimensional topology. Their unifying theme is the
automorphisms of 3-dimensional manifolds, including homotopy
equivalences, diffeomorphisms, and isometries. Specific projects
include: the Generalized Smale Conjecture for elliptic
3-manifolds, the isomorphism problem for diffeomorphism groups of
elliptic 3-manifolds, generalization of the Abikoff-Maskit
structure theory for Kleinian groups using topological methods,
investigation of free actions of finite groups on orientable
handlebodies using Nielsen equivalence classes of generating
sets, and fibration theorems for spaces of fiber-preserving
diffeomorphisms of manifolds having fiberings and singular
fiberings.

The primary mathematical constructs that will be investigated are
3-manifolds, which are geometric objects locally modeled on the
3-dimensional spatial structure of the physical universe, and
groups, which are algebraic systems with an operation akin to the
addition of ordinary numbers. Some of the ongoing work has
already been applied in the theoretical physics of gravitation,
but most of its applications are entirely within pure
mathematics. The guiding philosophy of most of the research is to
use topological and geometric structure of 3-manifolds to
understand groups of symmetries and other kinds of
automorphisms. Groups of automorphisms of a mathematical object
often exhibit their own interesting structure. A classic example
of this is the finite-dimensional vector spaces. They are rather
simple objects, but their automorphism groups, the general linear
groups, have a rich structure and find wide-ranging uses in
mathematics and physics. Within the proposed work, an example is
the 3-manifolds called handlebodies. These are among the simplest
3-manifolds to describe topologically, but their groups of
symmetries are subtle and varied. In fact, any finite group can
be a group of symmetries of some handlebody, and the number of
distinct ways that a group can act as symmetries on a given
handlebody can be quite large. A different use of the philosophy
involves Kleinian groups, which are discrete groups of symmetries
of 3-dimensional hyperbolic space. Each Kleinian group produces a
quotient 3-manifold, and one of the projects uses the topological
structure of these quotient 3-manifolds to give an algebraic
classification of Kleinian groups.